Conference: Workshop in Computability Theory

This award supports the participation of American researchers in Workshop in Computability Theory which will be held August 3-7, 2026, at the Technische Universität Wien in Vienna, Austria. The focus of this workshop is the foundations of computation, specifically computability theory and complexity theory. Researchers in these fields address questions about the difficulty of solving a computational problem, whether in terms of the time and space required for a computer to do so or in terms of the relative difficulty of problems that a computer cannot solve. The primary objective of this conference series is to expand the pool of researchers in computability and complexity theory by supporting and encouraging researchers from these areas in their investigations of research topics that are new to them, and this grant makes it possible for American researchers to develop their international professional networks and strengthen the United States’ reputation in these areas.

This conference is structured to enable researchers in computability or complexity theory to immerse themselves in a research project in an area they have not worked in before under the supervision of leading researchers in this area. These projects will involve topics such as algorithmic information theory, propositional proof complexity, and computational complexity from the perspective of computable structure theory, and they have been selected not only to cover a broad array of topics but also to allow a group of approximately five or six people to make tangible progress on them within a week with room to continue the collaboration after the workshop. This will extend the participants’ research networks beyond their current subfields. The conference website can be found at https://www.dmg.tuwien.ac.at/cocogems/.